Explorations in Stein's Method

Stein's method is a remarkable and largely unexplored
technique for proving approximation and limit theorems in
probability, and the investigator hopes to develop versions of
it which can be used to solve problems of interest to
researchers in algebra, probability, and statistics. More
precisely, there are five specific problems of interest the
investigator would like to solve. The first problem is to use
Stein's method to prove approximations to the Tracy-Widom
distribution (whose merit lies in its applications to random
matrix theory, tiling problems, percolation, queuing theory,
and much else). The second problem is to continue the
investigator's work on Stein's method and the spectrum of
random walks. The third problem is to use Stein's method to
prove approximations to the semicircle distribution (the free
probability analog of the normal distribution). The fourth
problem is to use Stein's method to bound convergence rates of
Markov chains, building on ideas of Diaconis. The fifth problem is
to prove chi-squared approximation for contingency tables with
fixed row and column sums, which would be quite valuable because
such approximations are frequently used in statistical work even
though their accuracy is poorly understood.

In making decisions of public policy, it is important
that one draws correct conclusions from the data available. A
drawback to many of the statistical methods applied today is that
the accuracy of the conclusions is unclear. As one example, in
determining whether there is gender bias in the promotion of
employees, it is common to use a statistical test called the
chi-squared test. As a second example, work on DNA sequences of
interest to biotechnology and health uses Poisson approximations
from probability theory. As a third example, in physics and
chemistry one uses Markov chain methods to test theoretical
models. These methods are routinely applied so it is important to
quantify their validity. A remarkable technique, introduced by Charles
Stein at Stanford, offers hope of better quantifying the accuracy
of such procedures. Stein's method has proven successful in
applications to DNA sequencing, but the technique is largely
unexplored. The investigator plans to extend the scope and
applicability of this method. As a final goal, the investigator
plans to study the use of Stein's method in Markov chain theory,
which as mentioned above, is crucial to drawing reliable
conclusions from computer simulations.